Fractures and Dynamic Fluids in Contact Metamorphic Environments

The principal investigator will study the development of fracture- controlled percolation networks through which dynamic fluids move. The long-term objective is to more thoroughly understand the mineralogical development of metamorphic terranes, and the feedback among thermal-chemical-mechanical processes during metamorphism, as well as the spatial and temporal evolution of a dynamically changing system.